Seismic Wave Excitation by Earthquakes of Anomalously Long Duration

This proposal requests support for fundamental study of seismic wave excitation by earthquakes of anomalously long duration. They are particularly interested in the possibility that low-velocity deformation events occur with characteristic time scales too long to radiate significant high-frequency seismic energy, but short enough to excite low-frequency free oscillations. To test this hypothesis, they have developed a novel method capable of detecting low levels of free-oscillation excitation superposed on background noise, and they propose to apply this detector to ten years of GDSN data. Once a low- frequency event is detected, they will derive its location, total- moment spectrum and source-mechanism spectrum using methods developed under an expiring NSF grant.